Mathematical Sciences: Descriptive Set Theory

This project deals with aspects of descriptive set theory and its relationship with analysis. These include (i) the study of the structure of Borel equivalence relations, both in a general descriptive set theoretic context, as well as in connection with specific situations arising in ergodic theory, as, for example, with equivalence relations induced by orbits of group actions, and (ii) definability and descriptive classification problems in harmonic analysis and the theory of operator algebras.